Interannual to Century-Scale Climate Variability in the Tropical Caribbean/Western Atlantic: Varve-Based Reconstructions from the Anoxic Cariaco Basin

9521058 Overpeck This project will examine annually-stratified sediments from the Cariaco Basin off Venezuela to determine variability in upwelling and strength of the trade winds during the period of rapid glacial advance and retreat known as the Younger Dryas interval (8-12.6 Ka). The results will contribute to understanding how tropical climate varies on short time scales, and the relation of such changes to variable solar radiation. ***